Mathematical Sciences: Affine Group Schemes and Related Topics

This project will focus on work in algebra especially in the areas related to affine group schemes and descent theory. The principal investigator will study genus theory and behavior in towers for groups of norm-type forms. The research will also consider extending recent descent theory results to find the proper way of defining a quadratic discriminant algebra for a ramified finite-rank extension of an arbitrary commutative ring. This research covers a wide range of topics in algebra. In particular, areas related to affine group schemes and descent theory will be considered. The breadth of this project makes it particularly attractive. The results will provide insight and understanding into many areas of algebra.